Experimental Research in Elementary Particle Physics

This award provides three year support for the high energy physics group at Rutgers University New Brunswick. The Rutgers effort is focused primarily upon CMS (Compact Muon Solenoid) at the Large Hadron Collider (LHC) at CERN., but also includes the completion of physics programs at the Tevatron (CDF and D0) and a technology development project for diamond-based high luminosity beam monitors for the LHC (previously supported by an NSF MRI award). This mix of projects exploits the varied expertise of group members while balancing their responsibilities to bring existing efforts to a natural close, to provide thesis opportunities for graduate students, to have a major impact upon LHC physics analyses, and to pave the way for future activities. The broader impacts include holding QuarkNet Summer workshops for high school teachers, participation in the annual Summer Research Program for high school students, work with environmental activists across New Jersey, and continuation of activities in accelerator physics, particularly with undergraduate students.